Geometric Group Theory and L^2 Cohomology

Davis and Januszkiewicz plan to continue their research on geometric
group theory, nonpositively curved spaces and L^2-cohomology. The
major portion of their work will focus on the new theory of the
''weighted L^2-cohomology'' of the complex associated to a Coxeter
group. The "weighting" depends on word length in the Coxeter group
and a positive real parameter q. When q is integral, the theory is
intimately tied to the ordinary L^2-cohomology of buildings. As q
varies from 0 to infinity the theory interpolates between ordinary
cohomology and cohomology with compact supports. Davis and
Januszkiewicz are trying to calculate these weighted cohomology
spaces when q lies in a certain intermediate range. They are also
trying to extend this theory to other classes of groups besides
Coxeter groups.

The theory of groups generated by reflections plays an important role
in many different areas of mathematics, for example, in Lie theory
and in the theory of algebraic groups. Around 1960 J. Tits
introduced the notion of a "Coxeter group." Synonymous terminology
might be an "abstract reflection group." Coxeter groups form a much
wider class of groups than do the classical examples of geometric
reflection groups. Recently, they have become important in geometric
group theory both as a source of new examples and as a paradigm for
predicting new results. The new research on weighted L^2-cohomology
has revealed some unexpected connections between several different
topics in the theory of Coxeter groups. Much more remains to be
discovered.